Air-Snow Exchange of Reactive Nitrogen Oxides at Summit, Greenland (Collaborative Research with UC Irvine, Michigan Technological University and Purdue University)

ABSTRACT OPP-9725252 OPP-9725463 DIBB, JACK HONRATH, RICHARD UNIVERSITY OF NH MI TECHNOLOGICAL UNIVERSITY OPP-9727093 OPP-9727418 BLAKE, DONALD SHEPSON, PAUL UNIVERSITY CA-IRVINE PURDUE UNIVERSITY The project will determine the atmospheric concentration of nitrogen compounds in the atmosphere by conducting a field experiment at a field camp at the summit of the Greenland ice sheet. The concentration of nitrogen compounds in the atmosphere will be compared to their concentration in freshly deposited snow so that the record of atmospheric chemistry that is retained in the permanent ice record at the site may be interpreted for changes in the chemistry of the troposphere that have occurred since human activities began to affect the atmosphere. That record will lead to important conclusions about the human impacts of global change on the atmosphere and will allow an examination of the natural cycles of atmospheric chemistry over the past 100,000 years.